The Barrett Lectures 2000

Abstract

Award: DMS-0080037
Principal Investigator: Alexander S. Freire

The Barrett Lectures at the University of Tennessee, Knoxville in
May 2000, "New Directions in Differential Geometry" will present
four main speakers and a number of additional lecturers. These
talks will address a broad spectrum of recent work in the
subject, including lecture series by four leading researchers on
partial differential equations and analytic methods, minimal
surfaces, symmetries and isometries in Riemannian geometry, and
Lagrangian cycles in symplectic geometry. The major component of
this award will support participation in the lecture series by
graduate students and recent Ph.D.s.

The Barrett Lectures have been held annually since 1972, covering
a variety of topics and attracting a national audience. They are
one of the few long standing lecture series in mathematics in the
southeastern United States. The subject of these lectures for
2000 is differential geometry, the study of aspects of a space
that can be captured by measures of length, angle, surface area,
volume, and related notions. Riemannian geometry concentrates on
issues related to curvature, the measurable quantity that makes
rigorous the notion that a flat plane and a round sphere are
distinct even at very small scales of attention. Symplectic
geometry concerns an idealization of the structure underlying the
Hamiltonian framework for mechanics, a structure that enables
measurements of areas and volumes but does not require that
length and angles be measurable. Both of these flavors of
geometric information have dramatic consequences for problems
concerning efficient or optimal placement of objects such as a
surface in a three-dimensional space, consequences which are
mostly expressed in the language of partial differential
equations and related ideas from mathematical analysis.